Improving Science, Technology and Math Programs at Little Priest Tribal College

Little Priest Tribal College's (LPTC) "Improving Science, Technology and Math
Programs at Little Priest Tribal College" (ISTAMP) project seeks funding that will
improve in-class and program retention, increase the intensity of the support methods
used with students, change teaching methods in order to make the college's science
programs more exciting, develop an internship program that hooks students into
undergraduate research, and initiate the development of a Geographic Information
Systems, Geographic Positioning System, and Visualization associate degree program.